U.S.-France Cooperative Research: Parameterized Task Graph Scheduling

This three-year award supports U.S.-France cooperative research in computer architecture between Tao Yang at the University of California, Santa Barbara and Michel Cosnard of the Laboratory for Parallel Computing at the Ecole Normale Superieure, Lyon, France. Dr. Apostolos Gerasoulis of Rutgers University will also participate in the project. The investigators propose to study symbolic scheduling of tasks for parallel distributed memory architectures. Efficient scheduling computational task execution and data movement is considered essential to high performance computing on massively parallel machines and workstation clusters. The U.S. investigators have developed scheduling algorithms and software tools. This is complemented by French expertise in techniques for automated parallelization of sequential FORTRAN programs. The project takes advantage of a prototype system developed by the French research group.